Nuclear Physics Studies at Intermediate Energies

An experiment to study threshold pion production in proton-proton collisions will be conducted at the IUCF Cooler. The equipment required for this experiment (including a new ring magnet and a new two-arm detector system) has been built and tested at the University of Pittsburgh and IUCF. The new magnet will become a permanent part of the Cooler ring. The experiment measuring differential cross sections and analyzing powers will run during 1991. A followup experiment measuring the complete scattering matrix using a polarized beam and target is proposed here. Development work for an approved CEBAF experiment in eta electroproduction from the proton will be carried out. The Pittsburgh effort is in building the drift chamber array that surrounds the target within the CEBAF Large Acceptance Spectrometer, an effort requiring significant planning and testing.